A Homogeneous Model For Reverse Osmosis Separation Of Multicomponent Electrolyte Solutions

CTS-9313873 University of Texas-Austin Douglas R. Lloyd ABSTRACT Development of a homogeneous theoretical model to predict species rejection coefficients for multicomponent electrolyte solutions during reverse osmosis comprises the main thrust of this research. The new theory incorporates the calculation of fixed charged density in the membrane during reverse osmosis and its dependence on ion coefficients will be calculated as a function of electrolyte concentrations, pH, and applied pressure and then compared to experimental measurements. The general theory will be extended to accommodate concentration polarization and membranes of different structures. Results could enhance the use of reverse osmosis to develop water resources in parts of the country, contributing to civil infrastructure, and facilitate hybrid methods for environmental treatment of contamination sites.